Complex Manifold Theory and Kaehler Geometry

ABSTRACT

The project is to investigate the following problems in complex manifold
theory.
(1) Invariance of plurigenera for manifolds not of general type.
(2) Fujita conjecture type problems and the sharpening of known bounds.
(3) Finite generation of canonical rings for manifolds of general type.
(4) Global regularity of the complex Neumann problem and nonexistence
problem for Levi-flat sets with small singularities.
(5) Hyperbolicity of generic high-degree hypersurfaces in the complex
projective space and their complements.
The investigation will use and further develop the method of multiplier
ideal sheaf which has already produced very good results.

Many problems in geometry and related fields, such as mathematical physics,
are reduced to questions about the existence and the properties, such as
regularity, of global solutions of partial differential equations. A priori
estimates have for a long time been the dominant tool for globally solving
partial differential equations. Such a priori estimates are usually derived
from pointwise properties of the partial differential equations. In many
important global geometric problems, some of which are listed above,
pointwise arguments are insufficient. To solve such problems, this project
uses and further develops the method of "mulitplier ideal sheaf". What is
to be estimated is multiplied by a "multiplier" before estimation so that
the a priori estimates hold. The set of all such multipliers forms the
"multiplier ideal sheaf". Global properties of the "multiplier ideal sheaf",
such as closedness under certain kinds of differentiation, for certain
problems force to be a multiplier the function which is identically 1, thus
giving the desired global solutions of the partial differential equations.
Some long outstanding problems in algebraic geometry have already been
solved by this method. With further development this new method of using
the multiplier ideal sheaf to solve global partial differential equations
should be a very powerful tool with broad applications and deep impact.